Presidential Young Investigator

This Presidential Young Investigator award provides five years of support to Dr. Kenoyer. It permits him to develop and gain experience in techniques in archaeometric research; to continue his own work in Pakistan and India; and to develop new teaching frameworks. Dr. Kenoyer will learn to: prepare ceramic thin sections and apply techniques of petrographic analysis; prepare samples for S.E.M. analysis; conduct micro.wear analysis using binocular microscopes; conduct trace element analysis using S.E.M. and electorn probe; carry out metallurgical analysis, including experimental replication using traditional ores and smelting procedures; and develop methods of ceramic replication and analysis. With these techniques he can both determine the methods of production of ceramic, metal and other materials, and in some cases also determine points of origin of raw materials. Dr. Kenoyer is currently involved in a major archaeological excavation at the site of Harappa in Pakistan. Specific studies will be conducted to source shell, stone and metal ores as well as finished objects used in external and internal trade. He will also study modern pottery manufacture in Pakistan and bead working in India to record traditional technological aspects of these industries and types of adaptations, both technological and social that have occurred through the introduction of imported technology. This will help him to understand past cultures and the role of innovation in change. This work is important because it will improve Dr. Kenoyer's archaeological skills, contribute to our understanding of the past, and aid in the development of innovative teaching programs.